Ligand/Receptor/G-Protein Dynamics in the Human Neutrophil: Toward Understanding Ligand Efficacy

9713856 Linderman The responses of cells are governed to a large extent by the binding of ligands to cell surface receptors and the signal transduction steps that follow. Multiple ligands which bind to the same receptors often show differences in their abilities to elict cellular responses despite equivalent occupancy of receptors (i.e. there are differences in ligand efficacy). An estimated 80% of all signaling receptors transmit their signal through guanine nucleotide binding proteins (G-proteins). A quantitative understanding of the determinants of ligand efficacy in G-protein coupled receptor systems is thus vital to biotechnological applications such as rational drug design and cell and tissue engineering. The objective of this project is to use and integrated engineering/cell biology approach to demonstrate that three critical parameters determining ligand efficacy and cellular responses in G-protein couple receptor systems are: (a) the rate of transition between receptor states; (b) the lifetime of an individual receptor/ligand complex; and (c) the extent of receptor/G- protein precoupling. The primary methods to be used are flow cytometry and mathematical modeling. ***